12th IUPAC Conference on Chemical Therodynamics, to be held August 16-21, 1992, in Snowbird, Utah

The International Union of Pure and Applied Chemistry (IUPAC) sponsors an International Conference on Chemical Thermodynamics every two years. This is the premier international meeting in this area. The location of the Conference is different for each meeting. The 1992 meeting will be held at Snowbird, Utah. The Conference will be a joint meeting with the 47th annual meeting of the Calorimetry Conference. The Department of Chemistry of Brigham Young University will be the local host for the conference. The National Science Foundation, through both the Division of Chemical & Thermal Systems and the Division of Chemistry, is contributing to the support of the scientific program of the conference.